Hydrogen Isotope Exchange Between Hydrous Minerals and Molecular Hydrogen

The principal investigator will develop a new method for determining D/H fractionation factors for systems of geologic interest. The primary goal of the study is to determine partition function ratios of common hydrous minerals as a function of temperature and thereby establish a self-consistent set of fractionation factors for application to geochemical problems. This will help resolve major discrepancies in the literature. The information will also be of considerable theoretical and physical chemical interest.